Plasma Immersion Ion Implantation for Surface Material Synthesis

In plasma immersion ion implantation (PII), ions are extracted directly from a plasma environment (in which the target is located) and accelerated through a high voltage sheath into the target. With a high ion-density plasma produced by electron cyclotron resonance (ECR) sources, the space charge region between the plasma and a negatively biased target can sustain a potential difference up to 200kV, with an ion implantation flux as high as 10 16/cm1-sec. this dose rate is equivalent to 10 monolayers of implanted atoms per second, and is a factor of one hundred to a thousand higher than conventional ion implantation. Other unique features of this technique include: no ion mass selection, no beam transport optics, and ion energy and angular distributions controlled by the plasma gas pressure and the applied bias waveforms. By adding a sputtering electrode into the plasma which is powered by a separate voltage supply (i.e., a triode configuration), the system can be used for sputtered ion implantation and ion assisted physical/chemical vapor deposition. Work to date on silicon device processing indicates the PIII is well-suited for high throughput, large area surface processing and is compatible with the cluster tool concept for future manufacturing equipment. In the grant the exploration of the formation of metastable metallurgical phases due to the high implantation rate of the PIII technique and the possibility of performing high dose rate ion beam mixing and deposition concomitantly. this will be achieved by using programmable pulses with variable pulse width, duty factor and voltage levels. The proposed work is to explore the science and engineering of PIII for synthesis and modification of novel electronic and optical materials. The PI will also investigate using PIII to synthesize high bandgap semiconductors such as GaN and AINm, to modify surface chemistry for selective metal deposition, to form novel thin dielectric films with composition gradients, to perform bandgap tailoring with buried GeSi alloys, and to improve the mechanical stress and electromigration reliability of submicron interconnects.